Microelectronic Information Processing Systems

This project is for exploratory research to determine the implementation factors and parameters for a new VLSI cell invoking redundant number arithmetic instead of 1's/2's complement. A narrow application towards signal processing (multiply/accumulate intensive) shall drive minimal area and speed designs. Carry/borrow free designs may greatly enhance modular fault-tolerant implementations. For further focus, the efficient Signed Binary Number Representation (SBNR) as a tri-valued subset of general redundant number representations affords more improved area/speed FOM's, thus making such cells highly VLSI-regular. This application specific study shall identify critical design parameters (minimal line widths, functional partitioning, VIA's , number of gates, inter/intracell connections) to aid the design engineer. Focus is on lower levels of computer architecture coupled to technology/implementation issues where significant discoveries may be leveraged into practical systolic arrays exceeding the design performance of GAPP and DAP devices while achieving breakthroughs in minimal cell layouts. There is potential for an order of magnitude speedup of signal processing circuits through the use of non-conventional number system implementations. This project will focus on VLSI enhancements of redundant number systems. The latter have been studied extensively and the time is ripe to assess their merit in circuit design. This research topic is an excellent one for a small business to pursue because of the potential for making a meaningful advance in the theory and practice of signal processing circuit design.